Conference: Aquatic Plants for Water Treatment and Resource Recovery

Support is being provided for the conduct of a conference on aquatic plants for biomass production, water treatment, and resource recovery, to be held from July 20-24, 1986. Topics to be considered include biology and ecology of aquatic plants, water treatment systems, biomass utilization, and economic and environmental impacts.